Integrating Large Load with Resource Colocation: Energy Management, Economic Analysis, and Policy Impacts

Rapid growth in gigawatt-scale AI data centers and electrified manufacturing facilities is creating unprecedented demand for the timely interconnection of large loads while maintaining power system reliability, resilience, and affordability. This NSF project investigates resource colocation, in which large loads are paired with distributed generation and storage resources, as an alternative paradigm for large-load integration. The project develops the scientific foundations, engineering methods, and economic frameworks needed to understand the capabilities, limitations, and policy implications of resource-colocated large loads.
The intellectual merit of the project lies in generating new scientific, engineering, and economic insights into resource-colocated large loads through the development of optimal energy management systems for resource-colocated AI data centers and hydrogen manufacturing plants, techno-economic analyses and empirical studies of their short- and long-run economic viability, assessments of the impacts of resource colocation on grid reliability and electricity costs, and characterization of the role of incentive policies in the large-load integration process.
The broader impacts of this project include its contribution to the nation's strategic priorities in AI and manufacturing by advancing approaches to resource adequacy that can support rapid growth in large electricity loads while reducing reliance on costly and time-consuming network expansions. The project also contributes to curriculum development by incorporating the engineering, economics, and policy aspects of serving large AI data centers and manufacturing loads in a cross-listed undergraduate/graduate course, thereby attracting students from economics, computer science, and environmental engineering to the multidisciplinary field of power and energy systems.

This project advances the state-of-the-art for rapid integration of large loads along three fronts. First, novel stochastic and deterministic optimization models are developed for colocating large loads with generation and storage resources that explicitly account for profit maximization, risk management, and grid reliability constraints. Second, the project conducts comprehensive techno-economic analyses and empirical evaluations using real-world data and configurations to assess the impacts of resource colocation on industrial profitability, bulk-system reliability, and data center operating costs. Finally, the project investigates the costs and effectiveness of incentive mechanisms for encouraging large-load resource colocation, thereby connecting technical innovation with policy design.